A Planning Visit to France to Establish an International IGERT Program

0100738
Duran

This award for a planning visit to France involves scientists and administrators from the Universities of Florida, North Carolina and Texas in the US and the Universities of Bordeaux, Paris and Strasbourg in France. The goal is to prepare an international IGERT (Integrative Graduate Education, Research and Training) proposal in advanced chemical concepts, which will be submitted to the 2001-2002 IGERT competition. The proposed IGERT program's goal is to provide extensive international experience and a multidisciplinary training program to US and French Ph.D. students, possibly leading to a joint Ph.D. degree. The US team and French counterparts will plan the science and training areas of the program and hold discussions on degree equivalence, residency requirement, tuition waivers, and other questions related to the development of a dual Ph.D. or international Ph.D. program.

This award represents the US side of a joint planning visit. The National Science Foundation will cover travel funds and living expenses for the US team. The French Ministry of Research will provide similar funding to the French team for a reciprocal visit to the United States.